Collaborative Research: Conference: Heartland Math Conference

The Heartland Mathematics Conference (HMC) is an annual graduate student mathematics conference to be held at Kansas State University (KSU), University of Nebraska-Lincoln (UNL), and University of Kansas (KU) in 2026, 2027, and 2028. The conferences are organized by graduate students at the three participating universities, under the guidance of Professors Dave Auckly (KSU), Alex Zupan (UNL), and Jeremy Martin (KU). The HMC provides a unique and valuable opportunity for graduate students to experience the benefits of presenting and taking part in a research conference and helps train organizing students in project administration. HMC is a continuation of the Kansas Mathematics Graduate Student Conference, which started in Fall 2021 and has run for four years as a joint project between graduate students at KU and KSU.

With mostly graduate students and undergraduates in attendance, the conference provides a low-pressure environment in which graduate students can present their research and improve upon their presentation abilities. The conference introduces participants to current trends in multiple fields of research and provides an environment for interdisciplinary collaboration, with the hope of creating strong research groups moving forward. The networking possibilities and the experience gained from giving a research talk enable attendees to mature as mathematicians and as future faculty members or professionals outside of academia. The conference website is:
https://sites.google.com/view/heartlandmathconference